Purchase of Impedance Spectroscopy Instrumentation for Research in Synthesis by Electrochemistry Techniques

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will allow the Physics and Astronomy Department at the University of Nebraska - Lincoln to acquire an impedance spectroscopy instrument. Bernard Doudin, a junior faculty member whose research focuses on in situ characterization of materials synthesized using electrochemical techniques, including ferromagnets and nanostructured materials, will be the primary user of this equipment.

Electrodeposition techniques have been shown to be a powerful method for fabricating magnetic layers. They have been successfully and extensively used in the magnetic recording industry, for example. This instrument will allow Doudin to monitor the properties of the magnetic materials while they are being fabricated; this will ultimately lead to a better understanding and control of the synthesis. The goal is to make new magneto-electronics devices by exploiting novel synthesis routes.